SBIR Phase I: Drug Delivery Elution Kinetics of Antibiotics From Hollow Calcium Phosphate Microcarriers

This Small Business Innovation Research (SBIR) Phase I project proposes to evaluate hollow CaP microspheres for the delivery of antibiotics in orthopedic and dental infections. The key objectives of the Phase I project include : (1) Development of optimal microsphere properties for the delivery of antibiotics to site-specific infections, (2) Evaluation of alternative methods for antibiotic loading within the CaP hollow microspheres, (3) Determination of antibiotic elution profiles, and (4) Development of cost models for producing these microcarriers.

The commercial applications of this project will be in the orthopedic, dental, and allied soft tissue markets.